Workshop on U.S.-Australia Interactions in Bioinformatics, Being held July 10-12, 2000 in Manassas Virginia

The American Type Culture Collection (ATCC) hosts a workshop on U.S.-Australia Interactions in Biological Informatics to take place on July 10-12th at the ATCC Headquarters in Manassas, Virginia.

This workshop, jointly sponsored by the U.S. National Science Foundation and the Australian Academy of Science, convenes a panel of about forty biologists and computer scientists to discuss enhancement of U.S.-Australian collaborations in four major focus areas:

1. Microarray (biochip expression data informatics)
2. Large DNA databases
3. Automated identification of organisms
4. Biodiversity legacy data from biological collections

It is expected that this meeting will foster research information exchange, development of new applications and lead to new collaborative research.